Geometrical Methods in Algebra and Topology

The PI proposes to work on a series of projects that incorporate
techniques from algebra, geometry, and topology, with a view to
applications in all three of these fields. More precisely, the PI
proposes to work on the following four circles of ideas:
(1) Answering various classical questions in topology (such as the Novikov
conjecture, the Borel conjecture, computation of the algebraic K-theory)
under suitable geometric hypotheses on the spaces.
(2) Working on problems related to the quasi-isometric classification of
finitely generated groups.
(3) Exploring the boundary between the space of CAT(-1) metrics and the
space of negatively curved Riemannian metrics on a fixed manifold.
(4) Studying the topology (cohomology, bounded cohomology, submanifolds)
of locally symmetric spaces.
These projects are intended to exhibit the interdependence of methods and
results between the three fields of algebra (primarily group theory),
geometry (negatively curved spaces) and topology (both geometric and
algebraic).

Groups are sets equipped with a "multiplication", and classically arose as
symmetries of underlying geometric objects. Geometry is the study of
properties of spaces equipped with some additional structure, usually of a
metric nature (i.e. allowing one to measure distances in the space). In
the field of topology, one forgets about the underlying distance, and only
retain the notion of points in the space being "close together". While
these three fields have always had some overlap, research from the last
twenty years have led to an increasingly fertile exchange of ideas and
applications amongst them. The PI's research is intended to further
develop the links between these three fields.